RUI: Remagnetization, Diagenesis, and Deformation in Paleozoic Cabornates of E. N. America: A Comparative Rock Magnetic and Calcite Strain Study

The PIs will investigate the relationships between Late Paleozoic remagnetization deformation, and diagenesis, by studying the rock magnetic properties and deformation microstructures in Paleozoic carbonates from a number of localities in eastern North America. The principal goals will be to: 1) more completely characterize the magnetic mineralogy and remanence carriers in remagnetized carbonate strata; 2) investigate possible quantitative correlations between diagenetic illite and diagenetic/authigenic magnetite content; 3) compare the orientations and magnitudes of magnetic and calcite twinning strain fabrics; and 4) evaluate the connections between Late Paleozoic fluid migration, calcite twinning, and magnetite authigenesis, and the evolution of the Appalachian-Ouachita fold- and-thrust belt.